Asymptotic Methods for Deformation Processing

9322714 Johnson The objective of this research effort is to develop analytical solutions, by means of asymptotic methods, for deformation processing. Such models will provide a rich environment in which to explore processing alternatives. The work will be done in collaboration with industry. Two areas of deformation processing will be modeled, hot mill rolling, particularly reversing miss, and thin section extrusion. Results from finite element analyses will be used to validate the analytical solutions. The work on hot sheet rolling mills is primarily aimed at evaluating through- thickness and thermal effects. The study is divided into two areas, thermal effects resulting from roll surface thermal boundary layers and temperature dependent constitutive behavior, and a thick slab, three-dimensional rolling model based on generalized plane strain. The work on extrusion will be a non-standard application of asymptotic methods aimed at developing a die design tool for thin section extrusion. The application of results obtained from this research will include both hot reversing mills and hot continuous mills. The lack of good models for deformation processing has been a limiting factor in the optimization and control of these processes.